Free boundary problems and Viscosity solutions.

Proposal DMS-0401436
PIs: David Jerison and Christina Kim (MIT)

Title: Free boundary problems and viscosity solutions

ABSTRACT

The main focus of this project is on problems in nonlinear differential
equations in which the boundary is unknown and has to be determined: a
so-called 'free boundary'. The PI is interested in the free boundary
problems with nonlocal structure, where velocities of the free boundaries
depend on global characteristics of the solutions. The goal is to gain a
better understanding of the following aspects of such problems: the
existence and uniqueness of solutions in global time; asymptotic behavior
of the free boundary as time reaches zero or infinity; waiting time
phenomena; and the regularity properties of the free boundaries. The PI
employs the notion of viscosity solutions to address the behavior of
aformentioned free boundary problems. This approach has been succesfully
used to study nonlinear PDEs and local laws of motions such as 'motion by
mean curvature'. The great advantage of this approach is its seamless
handling of topological transitions such as pinch-off. The key-step of the
theory of viscosity solutions is to establish a comparison principle. This
property leads, in turn, to the existence of solutions and allows for the
further study of their properties. Techniques coming from quantitative
versions of the comparison principle and harmonic analysis are employed to
study further properties of solutions.

The classical Stefan problem of melting ice is an example of the free
boundary problems. In the Stefan problem, one is modeling the evolution of
the polar ice caps, and the question of interest is the location, as a
function of time, of the interface between water and ice. The particular
problems to which the methods of the present proposal apply also include:
the
Hele-Shaw problem which models fluid motion in a narrow cell between
two parallel plates; flame fronts; and the interface between oil and
water in a flow. This is an area where modeling and computation are far
ahead of mathematical analysis. The main obstacle for developing a
well-defined notion for general motion of interfaces is that initially
smooth boundaries moving under smooth velocities may develop singularities
in finite time. The hitting and splitting of interfaces in flame
propagation is an example. It is natural to wonder whether the
continuation of the solutions is uniquely determined after pinch-off, or
whether additional constitutive information might be required at the
singular time. The impact of the singularity to the other part of the free
boundary is another interesting question. The PI plans to investigate
these questions in local and global perspectives.